The Engineering Properties and Potential Reuse of Thermally-Remediated Contaminated Soils

ABSTRACT Swann EEC-9612765 The proposed research will study the reuse and recycling of industrial waste products. This research thrust is important for our national economy and supports our ecological survival. The outcomes of this research should generate new and beneficial options for the sound management of contaminated soils by communities as well.